REU: The Stratigraphy of Late Pleistocene Amazon Fan Sediments

The Amazon Deep-Sea Fan is a typical large modern deep-sea fan. Past studies have documented the structure and surface morphology of the fan, including the location and character of the most recently active channel which crosses the fan. Cores collected in the vicinity of this channel sample the sediments deposited by channelized flows before activity ceased following post-glacial sea level rise. We propose here (1) to use morphological and sedimentological data to determine the likely characteristics of channelized turbidity currents and (2) to develop a stratigraphy which will allow us to determine the age of sedimentary activity on the fan. The stratigraphy will be based on delta 0-18 curves supplemented with AMS C-14 dates. New techniques developed at NCSU can measure 0-18 on samples containing few foraminifera, an advantage in cores with high sedimentation rates. AMS C-14 dates on the biogenic carbonates and pollen analysis will help to constrain the stratigraphic dates. Benchmark isotope stratigraphies, developed in the middle and lower fan areas where downslope flows are minimal, will applied to the most recently active channel/levee areas where downslope flows are more common. Such a stratigraphy will allow us to determine the ages associated with depositional events such as the cessation of flow down abandoned channels and the emplacement of major debris flows. We can then determime rates for fan processes and tie depositional patterns to sea level. The high-resolution 0-18 stratigraphy will also be valuable for assessing the late glacial/early interglacial role of the amazon River in determining paleoclimate and paleoceanograhic changes.